Variable Temperature NMR in the Undergraduate Laboratory

James Madison University is expanding the capabilities of the NMR shared with Bridgewater College and Randolph Macon College by the addition of a variable temperature (VT) accessory. This acquisition improves the undergraduate laboratory and